Mineral-Catalyzed CO 2 Reduction in Subseafloor Hydrothermal Systems: An Experimental Study of Elevated Temperatures and Pressures

This project involves an investigation of the role of fluid chemistry, mineralogy, temperature and pressure on the rates and processes by which CO2 is converted to more stable compounds when exposed to mineral surfaces under increasingly reducing conditions. In general, experiments will be conducted at temperatures from 250 to 450 degrees C using a suite of minerals and mineral assemblages appropriate for subseafloor hydrothermal systems. The design of experiments emphasize time-series measurements of dissolved carbon species and carbon isotopes at experimental conditions and will take full advantage of recent advances in theoretical geochemistry to constrain better reactions in the C-H-O system. An integrated experimental and theoretical approach is needed to understand fully the range and complexity of carbon reduction reactions in subseafloor reaction zones at mid-ocean ridges.